EPSCoR Research Fellows: NSF: Securing Next-Generation Advanced Driver Assistance Systems Through Multi-Phase Safety Assurance: From Design to Runtime

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at Louisiana State University. This work is conducted in collaboration with experts at the University of California, Los Angeles. Through the fellowship, the PI will address the critical challenge of detecting and preventing hidden system failures in advanced vehicle technologies before they lead to roadway accidents. Using computer science and engineering approaches, the research will develop new methods to help vehicles respond safely to complex and unpredictable driving situations. The project will strengthen vehicle safety and reliability, potentially reducing crashes and property damage affecting millions of drivers. It will also expand Louisiana's technical workforce by training students in artificial intelligence, transportation safety, and cyber-physical systems.

This project will develop a multi-phase safety assurance framework for advanced driver assistance systems that integrates design-time validation with runtime monitoring. The research will advance the state of the art by combining formal verification techniques with machine learning to improve the transparency and verifiability of autonomous driving systems. The methodology will employ program analysis and natural language processing to identify critical fault-related variables and guide targeted fault injection through reinforcement learning. At runtime, domain-informed predictive models will detect emerging hazards and enable early mitigation of unsafe behaviors. The fellowship will strengthen research infrastructure at Louisiana State University by advancing faculty expertise in cyber-physical systems and providing specialized student training in artificial intelligence safety. The project will also establish a sustained research collaboration with UCLA and release open-source software and datasets to advance reproducibility and support workforce development.

This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF). The ERF program supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.